Southeast Geometry Seminar 2005-2007

Abstract

Award: DMS-0443155
Principal Investigator: Gilbert A. Weinstein, John E. McCuan,
Vladimir I. Oliker

The Southeast Geometry Seminar is a series of semiannual one-day
events focussing on geometric analysis. These events are hosted
in rotation by the following institutions:
* The University of Alabama at Birmingham.
* The Georgia Institute of Technology,
* Emory University.
One guest speaker is invited for each event from outside the
region, with the remaining talks given by local participants. The
main goals of these short meetings are to present to young
mathematicians, especially graduate students, interesting lectures
in geometric analysis by leading experts in the field, and to
foster collaboration among researchers in this area and related
fields.

Geometric analysis is an area of mathematics in which geometric
objects, such as, curves, surfaces, and higher dimensional spaces,
are studied with the help of tools from analysis. It has
applications in many areas of science and technology, for example,
in gravitational physics, material science, optics,
electromagnetics and the design of mechanical systems. This series
of conferences will contribute to the infrastructure of the United
States by stimulating development of new research in geometric
analysis in the Southeast. It will help attract and train
graduate students and post-docs in this important area of
mathematics.